Analysis and Testing of Concurrent Object-Oriented Software

9901004 Kuo-Chung Tai North Carolina State University
Title: Analysis and Testing of Concurrent Object-Oriented Software

Due to the popularity of object-oriented technology and network applications, the use of concurrent object-oriented programs is increasing rapidly. The goal of the project is to develop cost-effective techniques for analyzing and testing concurrent object-oriented programs. The research focuses on the following problems: analysis and testing of a class that contains data shared by multiple processes, analysis and testing of a set of classes that define processes communicating with each other, and incremental analysis and testing of a concurrent object-oriented program. The results of the research can be used to improve the reliability of concurrent object-oriented programs and to reduce the high cost of validating concurrent object-oriented
programs.